Job Exit Behavior: An Empirical Analysis for the U.S. UsingSIPP

Transitions into employment have been studied extensively within the "search" framework -- a paradigm which incorporates uncertainty in the labor market explicitly. Theoretical models have been developed; wage and unemployment duration data have been interpreted in light of this theory using estimation methods developed primarily for this purpose; the theory has then been revised and refined in light of empirical findings. Overall, this research has advanced out understanding of the dynamics of unemployed worker behavior and provided insights into important policy issues (unemployment benefits, in particular). Transitions out of jobs and between jobs -- long recognized as a major form of motion in the labor market -- have not been studied as extensively. Theoretical models of job-exit behavior have been developed within the search framework, but empirical research has lagged behind. Planning activities for an empirical analysis of variation in job-exit behavior across major demographic groups in the U.S. labor force are the focus of this project. Specifically, the potential of both parametric and nonparametric estimation techniques for determining patterns of systematic variation in job-exit behavior across workers in alternative age, race and gender groups will be explored. Among the questions addressed will be: (i) Do workers in alternative job groups generally exit their jobs involuntarily (versus voluntarily) ? and (ii) Are there systematic differences across groups in terms of destinations? That is, are workers with certain characteristics more likely than others to enter alternative jobs directly, or perhaps more likely to engage in nonmarket activity? In addressing these questions, potential sources of systematic variation suggested by economic theory will be investigated. These will include the relationship between job-exit behavior and variation in educational attainment, on-the-job training, marital status, parental status, occupation and industry attachment, union membership and valuation of nonwage benefits (health insurance, in particular). The limited experience accumulated on demographic variation in job-exit behavior in the U.S. may in part be attributed to constraints imposed by the data that have been available to date. This project includes construction of a labor market histories data set for a large, representative sample from the U.S. population from the Public Use Files for the 1986 Panel of the Survey of Income and Program Participation.